Language and Cultural Training for the International Engineering Experience

Rose-Hulman Institute of Technology will design and implement a three-part program of Japanese language and cultural training aimed at senior-level engineering students. Students will be drawn primarily from the 11 engineering colleges which, together with Rose-Hulman, comprise the Engineering Alliance for Global Education (EAGLE) whose overall objectives are to provide international work experiences for recent engineering graduates or senior-level students, and to develop curricular tools to enable participants to profit from such experiences. Up to 75 students will participate in the first cycle of the Rose-Hulman program. The first part will consist of a one-week screening and orientation session at the end the summer prior to the final year of engineering studies. The second part will be a customized, mentored self-study course in the Japanese language on the participants' home campuses during their final year of engineering studies. The third part will take place during the summer following receipt of the engineering degree and will consist of a ten-week, resident, intensive language and cultural skills session. Industrial support is being sought to place those who complete the program successfully in year-long internship positions with U.S.-owned or affiliated companies in Japan immediately following that final summer.